Materials Theory, Simulations, and Parallel Algorithms; Meeting of the Materials Research Society, Boston, MA, Fall Meeting

9527893 Ballance This award is in support of a symposium to be held as part of the Materials Research Society 1995 meeting in Boston, Massachusetts, from November 27 - December 1. The symposium is entitled OMaterials Theory, Simulations and Parallel Algorithms.O Many of the leading researchers il the world will be giving presentations. %%% This award is in support of a symposium to be held as part of the Materials Research Society 1995 meeting in Boston, Massachusetts, from November 27 - December 1. The symposium is entitled OMaterials Theory, Simulations and Parallel Algorithms.O Many of the leading researchers in the world will be giving presentations. ***